Annual Symposium on Children's Science Books

The proposers will organize and conduct the first of what is hoped will become an Annual Symposium on Children's Science Books that will focus national attention on this important and overlooked channel for science literacy. This first two day symposium will involve 75 editors, authors, librarians and educators in an intensive exploration of science books intended as independent or collateral reading materials for children at home, classroom or library. A national advisory committee will help shape the symposium's content. Professional and popular articles and a book will disseminate the results of the meeting. This project will explore an often-overlooked area of popular science education, and will involve science researchers committed to participating in improving popular education and communication in science. NSF support will be supplemented by university funds and income from the symposium.